The Third International Mouse Genome Meeting, Oxford, England, August 1989

An organizing committee has been formed to establish an International Mouse Genome Organization that would coordinate mouse genetic information databases, organize regular meetings on the mouse genome, enhance opportunities for genetic analysis of the laboratory mouse and coordinate the development of maps of mouse and human genomes. Participants in two international gene mapping meetings held in Paris in September, 1987, and in the U.S.A. in June, 1988, have agreed there is a clear need for further meetings. In August, 1989, the Third International Mouse Genome meeting will be held in Oxford, England. The goals of this meeting are (1) to provide a forum to continue the exchange of new gene mapping data, methods for computer analysis of genetic data and genome mapping and sequencing data; (2) to establish committees to integrate complex high resolution mapping and sequencing of specific regions of the mouse genome; (3) to stimulate international collaboration in mouse genome analysis; (4) to coordinate mouse genetic databases; and (5) to formalize the International Mouse Genome Organization. The integrated high resolution maps produced by this meeting are essential not only for studying mouse genome organization and evolution, but also for identifying mouse mutations. Such mutations not only are model systems for therapy but also provide important clues about metabolic function, bearing on development, immunology and cancer. This award will support the travel of selected young United States scientists to participate in this important meeting.